Publication of Proceedings for the 12th Johns Hopkins Workshop on Current Problems in Particle Theory, held in Baltimore, Maryland, June 1-17, 1988

This project is a three-day workshop on current problems in theoretical particle physics, centered around new field theory techniques and their phenomenological implications. This workshop should enhance the pace of research in the areas covered.